Out on a Limb -- Forest Canopies

The "Out on a Limb -- Forest Canopies" exhibit will educate people about forest canopies, and illustrate the challenges of canopy access by scientists. A traveling rain forest diorama -- with scaled models of scientists exploring the canopy, and accompanying graphic panels and interactive activities -- will circulate to community venues in southwest Florida, increasing public awareness of how forest canopies are important to life on Earth. Canopy research provides a highly visual, exploratory approach to scientific inquiry that can be effectively communicated to the general public and school groups. Based on research funded by NSF, (DEB-0228871), this project was funded as part of the Communicating Research to Public Audiences program.